Special Minority Award (Physics)

This Special Minority Award will give the graduate student additional flexibility in pursuing his graduate studies and research initiation in Physics. His primary research interest is in the field of Elementary Particle Physics, an area in which Michigan State University is strong. This award will strengthen minority research participation in Physics.